Hidden Instabilities due to Coexistence Phenomenon in Autoparametric Excitation

When an engineering structure is loaded by a vibratory source such as a
motor, resonances occur in the neighborhood of normal modal vibrations. These resonances are
often undesirable, resulting in large deformations and possible destructive effects. If
nonlinear effects are taken into account in the engineering model, the normal mode vibrations are
periodic motions known as nonlinear normal modes.

This work concerns nonlinear normal modes in two degree of freedom systems.
Such systems are subject to a phenomenon known as autoparametric excitation. This
involves energy being transferred between nonlinear normal modes in a resonant fashion, with the
possibility that a nonlinear normal mode may become unstable. If a structure were to be designed to
operate in a particular vibrational mode, and if that mode turned out to be unstable, the design
would be a failure.

The usual procedure for determining whether a nonlinear normal mode is
stable or not involves using a mathematical theory known as Floquet theory. This offers
predictions of instability based on for example numerical integration of the differential equations of
motion. In the proposed research, we address a situation (called coexistence) in which Floquet theory predicts stability, but which involves instabilities which would result if the model was changed slightly.
Since no engineering model perfectly represents a physical situation, such instabilities in models with
coexistence are inevitable.

Although coexistence occurs in a variety of models of physical systems very
little research has been aimed at understanding the associated instabilities. This project aims 1) to
determine which systems exhibit coexistence (from a general class of systems), and 2) to examine the
nature of the resulting instability.

This project will fund a graduate research student at the doctoral level and
thus will integrate research and education. The results of the research will be broadly disseminated by
being presented at a scientific/engineering meeting and published in a scientific journal. In
this way it is hoped that engineers will be made aware of possible design trouble that could be caused by the
hidden instabilities which are the subject of this research.